Subpolar Gyre Process, Simulation and Data Assimilation Experiments: Numerical Modeling in Support of the ACCE

9531873 Rothstein This project is a contribution to the modeling component to be carried out as part of the Atlantic Circulation and Climate Experiment (ACCE) under the World Ocean Circulation Experiment (WOCE). The focus will be on upgrading existing isopycnal models, data assimilation, and integrating different types of regional models. Comparisons will be made among different modeling approaches in order to assess the strngths and weaknesses of each, and to determine the best overall approach for including ocean variability in climate modeling. Particular attention will be paid to assimilating, into the models, data from the field phase of ACCE, as well as from historical data bases. In this particular project, the PIs will provide a numerical ocean circulation context for the dynamical analyses of the subpolar field observations, using the Princeton Ocean Model (POM), recently re-designed to properly represent all of the important subpolar physical process. It will be further augmented with an atmospheric boundary layer model to more accurately represent surface heat fluxes, and an ice model to properly simulate regional fresh water fluxes.